Tenth European Conference on Earthquake Engineering

9419697 Villaverde This is an international travel grant to the PI to participate and present two papers in the 10th European Conference in Earthquake Engineering to be held in Vienna, Austria on August 28- September 2, 1994. ***